Turtle Mountain Technical Assistance Center (TMTAC)

The Turtle Mountain Technical Assistance Center project will conduct leadership development and capacity building activities for a group of tribally-controlled colleges in the Upper Great Plains. The activities will be determined by the goals of the individual colleges in conjunction wit judgements made by the expert staff of the reently expired Tribal College Rural Systemic Initiative. Findings will be disseminated through the professional outreach avenues of the key leadership.